RAPID: Income and Poverty in the COVID-19 Pandemic

Abstract

In nine weeks at the start of the COVID-19 pandemic 39 million people filed for unemployment insurance, while GDP for the first quarter of 2020 was down 4.8%. The federal government responded with unprecedented stimulus legislation that committed more than two trillion dollars to countering the effects of the pandemic. Effectively targeting and calibrating the government's fiscal response requires tracking changes in income and poverty by demographic group and geography in a timely way, which there is extremely limited ability to do. Official estimates of income and poverty for 2020 will not be available until September of 2021. This project responds directly to this need to develop new processes to help address the economic impact of the COVID-19 pandemic by providing timely and accurate information on the impact of the current pandemic on income and poverty to inform the targeting of resources to those most affected. The project aims to construct new measures of the income distribution and poverty with a lag of only a few weeks using high frequency data for a large, representative sample of U.S. families. This project will have immediate impact in advancing basic knowledge in the fields of economics and related social sciences and providing tools for policy makers by constructing new, near real-time estimates of income and poverty.

The project will validate new, timely measure of income by comparing historical estimates that rely on these data to estimates from data on income and consumption that have been used much more broadly. Importantly, these validation exercises will utilize new data that links survey data to tax and program data at the individual level. The validation will help researchers understand the advantages and limitations of using more timely income data to study changes in economic well-being. This project will also address key questions regarding the impacts of large economic shocks and survey income measurement, both critical elements of much economic research.